RAPID: An Improved Understanding of Mesoscale Wind and Precipitation Variability in the Ross Island Region Based on Radar Observations

Despite several decades of successful Antarctic aviation, centered upon flight operations in the McMurdo (Phoenix Field, Ross Island; RsI) area, systemized description of radar observations such as are normally found essential in operational aviation settings are notably lacking. The Ross Island region of Antarctica is a topographically complex region that results in large variations in the mesoscale high wind and precipitation features across the region. The goals of this project are to increase the understanding of the three-dimensional structure of these mesoscale meteorology features. Of particular interest are those features observed with radar signals.

This project will leverage observations from the scanning X-band radar installed during the AWARE field campaign in 2016 and the installation of an EWR Radar Systems X-band scanning radar (E700XD) to be deployed during the 2019-20 field season, at McMurdo. Several science questions and case studies will be addressed during the season.